Conference: 2025 AfroBiotech Conference

The 2025 AfroBiotech Conference is being held February 16-18. The Conference highlights the achievements of African Americans in biotechnology, inspires a new generation of biotechnology professionals and identifies, communicates and explores current advancements in various aspects of Biotechnology. The Conference promotes creating opportunities for everyone and everywhere within the Biotechnology industry and serves to bring together scientists and engineers working in Biotechnology and related fields. Conference registration is open to all, creating a welcoming event for people from all backgrounds.

Biotechnology continues to be a rapidly developing field, and it is critical to ensure that innovations are equitable and that they serve all people. This conference serves as a venue to bring biological engineers together in a growing field and address advances and prospects in scientific areas pertinent to biological engineering. The Conference serves to bring together scientists and engineers working in biotechnology and related fields. Conference registration is open to all, creating a welcoming event for people from all backgrounds.